Cloning and Functional Analysis of the Arabidopsis lut1 Locus: A Noval Activity Required for Hydroxylation of Epsilon Ring Carotenoids in Plants

Plants synthesize two major groups of carotenoids: carotenes, which are
cyclized or uncyclized hydrocarbons (e.g. lycopene and beta carotene), and
xanthophylls, which are variously oxygenated derivatives of carotenes (e.g.
lutein and zeaxanthin). Carotene hydroxylases (OHases) add hydroxyl groups
to the rings of cyclic carotenes and are essential for the synthesis of all
xanthophylls in plants. This proposal performs a detailed analysis of
carotene hydroxylases in plant tissues by isolating genes defining specific
carotene hydroxylases and modifying the expression of one or more activity
by mutant analysis. The consequences of such modifications on carotenoid
and xanthophyll synthesis and composition in photosynthetic tissues will
provide important insights into the role of each enzyme in the pathway and
the consequences of pathway engineering in food crops. Given the importance
of carotenes as antioxidants in the human diet and the role(s) of
carotenoids in decreasing the incidence and progression of macular
degeneration, various cancers and vitamin A deficiency in certain subgroups
of the global population, a further understanding of the enzymes involved
in carotenoid and xanthophyll synthesis may have beneficial impacts on the
overall health of the population.